Mechanisms of Light Regulated Translation in Chloroplasts

Photosynthesis is the process that converts light energy from the sun into chemical energy and leads to the production of the carbohydrates that fuel life. This project addresses a fundamental question in plant biology: how do plants ensure that the light, which fuels photosynthesis, does not damage the photosynthetic apparatus such that photosynthesis is no longer possible? This project will use this fundamental knowledge to improve plant resilience to photoinhibition, with a long-term goal of improving photodamage resiliency in crop plants. Hence, this project may lead to technological advances that improve plant viability in agricultural settings. High school and undergraduate students will gain experience with research through involvement in this project, and a collaboration with a local science museum will offer workshops for grades 3-5 featuring hands-on activities that explore photosynthesis.

The primary target of photodamage is the D1 reaction center protein of photosystem II (PSII), which is encoded by the psbA gene in the chloroplast genome of plants and algae. Damaged D1 must be replaced with newly synthesized D1 to maintain photosynthesis. The rate of D1 synthesis increases in proportion to D1 photodamage to supply nascent D1 for PSII repair. In plants, this regulation occurs at the level of translation initiation on psbA mRNA, functioning as a translational rheostat that tunes D1 synthesis to repair demand. Prior results showed that the mechanism requires cis-elements in both the psbA 5'UTR and open reading frame (ORF), a translational regulator, HCF173, that binds the 5'UTR constitutively and toggles between activating and repressing forms in response to light, and proteins that mediate early steps in D1's assembly into PSII. These findings led to a model in which cotranslational interactions between nascent D1, HCF173, and D1 assembly factors control the partitioning of HCF173 between its activating and repressing forms. The proposed experiments will test and refine this model using complementary genetic, molecular, genomic, and biochemical approaches in Arabidopsis, maize, and tobacco.